Homogenization of Ginzburg-Landau and Elasticity Problems and Related Questions

Berlyand
0708324

The investigator works on the theoretical development and
applications of homogenization theory. This theory deals with
the properties of heterogeneous materials, which are of critical
importance for modern technology. Modeling of such materials
raises fundamental mathematical questions, primarily in partial
differential equations and Calculus of Variations. The project
focuses on two areas, with homogenization and multiscale analysis
as their common themes.
Area A. Ginzburg-Landau models: homogenization, well-posedness,
and near-boundary vortices. Vortices of the minimizers of the
Ginzburg-Landau energy functional capture essential features of
superconductors and superfluids. They have many common features
with vortices in fluids, defects in liquid crystals, dislocations
in solids, etc. The investigator studies the homogenization and
rise of a special type of near-boundary vortex for the
Ginzburg-Landau functional in the class of maps with the degree
(winding number) prescribed on the boundary of a
multiply-connected domain. In this problem, he establishes novel
local minimizers that have near-boundary vortices with bounded
energy.
Area B. Homogenization of an elasticity problem with many
nonseparated scales and the Cauchy-Born rule. Homogenization
(upscaling) in the presence of many nonseparated spatial scales
is far from understood from a mathematical standpoint and it
arises in the study of turbulence, soils, biological tissues,
etc. The investigator studies such a problem for elasticity
equations and constructs an approximate (upscaled) solution
belonging to a finite-dimensional functional space. The
classical Cauchy-Born rule is a postulate that allows the passage
from atomistic to continuum models in monoatomic crystals. The
investigator uses the above approximate solution to derive a
generalized Cauchy-Born rule for strongly heterogeneous
materials.

The investigator focuses on the development of novel
techniques of applied analysis to address the needs of modern
technology. The Ginzburg-Landau equations arose in modeling
superconductivity but have wider implications. In this project,
the investigator's work on this topic has potential applications
in the design of superconducting materials (which at certain
temperatures conduct electric current with no resistance) and
ferromagnetic materials. Additionally it addresses the
understanding of vortex behavior, which is one of the major
challenges for the science of superconductivity and its
technological applications. For the second topic, homogenization
of elasticity problems with nonseparated scales, he aims to
develop novel, efficient computational tools suitable for
modeling strongly heterogeneous (disordered) materials, both
natural and man-made. In particular, the issue of elastic
"cloaking," when a portion of a geological medium is shielded
from elastic waves, is addressed. Advances here could help in
the design of earthquake-proofed buildings.